Turbulent Structure and Entrainment in Reacting, Complex Flow

The object of the research is to understand the structure and entrainment in combustion using a model laboratory complex flow with diagnostics having expanded capability. The approach employs existing two-color laser anemometry and thermocouple probes in combination with a fiber optic probe and laser spectroscopy in a series of experiments which model the characteristics of the complex flow and concludes with measurements in the complex flow itself. The fiber optic probe is included to assess the frequency response of the thermocouple probe. In addition, laser spectroscopy is used to further assess the validity of the temperature probes, extend the combustor operating condition under which temperature and heat flux measurements can be acquired, and provide for measurement of mass flux. The research delineates the effect of reaction and inlet conditions on the turbulent structure and entrainment of the flow. The study establishes an experimental data base that can be utilized in testing and developing mathematical models.